Theoretical Nuclear Physics

This work will pursue basic theoretical research on atomic and nuclear many-body problems using intensive computational techniques. The topics include calculating the effect of final state interactions on the scattering response of liquid helium drops with extensions to nuclei and using Monte Carlo methods to calculate collective excitations of nuclei and helium drops. This work will advance the state-of- the-art in our ability to predict the properties of complicated many-body systems.